The International Space Science Institute (ISSI) Workshop - The Scientific Foundations of Space Weather; Bern, Switzerland; June 27 - July 1, 2016

This is an international travel grant to support US participation in a workshop on "The Scientific Foundations of Space Weather" to be held June 27 through July 1, 2016, at the International Space Science Institute (ISSI), Bern, Switzerland. The workshop will be hosted by ISSI on its premises and ISSI also covers some accommodation and per diem costs for the participants as well as the publication charges for the series of review papers that are expected to result from the workshop. The meeting will include a total of 40 participants. This award will provide partial travel support for 20 US scientists, including 2-3 graduate students, who have been invited to participate in the workshop.